Shimura varieties and their local models

ABSTRACT for award DMS-0701310 of Mantovan

Beginning in 1967 Langlands suggested an intricate web of
far-reaching conjectures connecting the theories of automorphic
forms and Galois representations. He also predicted some of these
correspondences to be encoded in the cohomology groups of Shimura
varieties and their local models. The proposed research pursues the
study of the geometric implications of these conjectures, focusing
on two key features: the compatibility between global and local
conjectures and the functoriality principle. The PI aims to enlarge
the class of Shimura varieties whose local behavior at unramified
primes is well understood by eliminating two common restrictive
hypotheses: the assumption of properness and the restriction to the
subclass of Shimura varieties of P.E.L. type. In the first case, the
PI proposes to develop the integral theory of arithmetical
compactifications for Shimura varieties, following the works of
Faltings-Chai and Pink. In the second case, she plans to study the
bad reduction of Shimura varieties of Hodge type, following the
strategy of Rapoport-Zink.

The Langlands program proposes the existence of a relation between
seemingly unrelated objects in number theory and harmonic analysis.
A Galois group is the collection of all symmetries existing among
the roots of a given polynomial in one variable and a Galois
representation is the realization of such symmetries as matrices. On
the other hand, automorphic forms are complex functions possessing
many self-similarities. A connection between the two theories as it
is proposed by the Langlands program would provide an incredibly
powerful mathematical tool translating theorems of harmonic analysis
into theorems about algebra, and vice versa. In some cases, it is
expected such a correspondence to be encoded in the geometry of
certain algebraic objects: the Shimura varieties and their local
models. This project aims to shed some light on how the geometry of
these spaces could reflect some of the deepest aspects of the
Langlands' conjectures.